Seismic Design of RCS Frame Connections for Repairable Damage

9710204 Wight The research project will investigate the seismic response of exterior frame connections in composite (steel-concrete) structures, with emphasis on defining a "repairable damage" limit state and investigating the effectiveness of standard repair methods for composite connections. Currently such connection subassemblies are being subjected to reversed cyclic loading of increasing displacement magnitudes, eventually reaching displacement levels corresponding to approximately 5% interstory drift. This degree of interstory drift is beyond the "life safety" limit state and approximately at the "collapse prevention" limit state. Approximately four of the six specimens for repair will be retested and two additional RCS exterior connections with designs similar to two of the original specimens will be constructed for retesting. These specimens will be subjected to reversed cyclic loading to increasing displacements, stopping the testing at interstory drift level should be below the "life safety" limit state, but beyond the "immediate occupancy" limit state. Post-test analytical studies will be used to simulate the measured RCS connection behavior during both its original and repaired behavior. The degree of stiffness and strength retention, and amount of energy dissipation capacity at various interstory drift levels, will be compared between all specimens, with special emphasis on the comparison of the results for the same connection in its "original" and "repaired" conditions. Analytical models will be developed for use in trial designs of RCS frames structures. The analytical modeling and trial designs will be coordinated with current U.S. research projects on RCS frames at other U.S. universities and Japanese research institutions. This is a project supported under the NSF initiative No. 94-154 "Composite and Hybrid Structures". ***